Learning Hard Concepts Through Constructive Induction

Based on research that pinpoints the basic deficiency of current empirical learning algorithms, the proposed project will develop a principled system to complement them. The combination of traditional with new algorithms is designed to improve overall system speed, accuracy, and generality. To develop a general learning system that will perform well over many kinds of concepts, domains, and situations, this project will: design a uniform approach that reduces "hard" concept learning to the problem of learning "easy" concepts that current systems can manage; allow flexible learning despite varied learning situations, including uncertainty, incremental demands, and differing amounts and kinds of knowledge; demonstrate in several ways the utility of the approach, including progress on significant problems such as protein folding. In a new architecture for concept learning, the project will: speed reliable learning by using a uniform approach (essentially a single algorithm) in several stages of progressive, "layered" construction from lower level components, using and acquiring different kinds of knowledge in appropriate information structures.